Research Initiation: Spray Forming Process for Metal-MatrixComposites

Spray forming process offers a great potential for near-net shape manufacturing of metal-matrix composites. A special experimental system will be developed to investigate the effects of process variables such as droplet size, velocity, temperature history, undercooling and impingement surface condition on the formed geometry, microstructure and yield. Also investigated will be the effects of splat phenomena and inclusion of reinforcing particulates on the resulting microstructures. Several hypothesis on the solidification mechanism will be examined, and the results will be incorporated into available mathematical processing models.